Workshops Exploring the Factors that Underlie Underrepresentation and Differential Career Development of Women and Minorities in Science and Engineering Careers

The focuses of this project are workshops exploring the factors that underlie underreprentation and differential career development of women and minorities in science and engineering careers.